RET Site: Strengthening a K12 Learning Community through Engineering Research

This award provides funding for a three year continuing award to support a Research Experiences for Teachers (RET) in Engineering Site program at the University of Oklahoma (OU) entitled, "RET Site: Strengthening a K12 Learning Community through Engineering Research", under the direction of Dr. Chen Ling.

The goal of this OU-RET in Engineering program is to expand and strengthen the K12-University learning community established in a prior successful RET program, by including more members, building deeper and more vibrant relationships, and further enriching the effective and meaningful long-term professional collaborations based upon engineeirng research and STEM teaching.